U.S.-France Workshop on the Quality Guidelines for the Practice of Earthquake Engineering

An exchange of information and perspectives on earthquake engineering between U.S. and French researchers would be mutually beneficial. Such and exchange will take place at a workshop to be held in France on February 2-5, 1986. A small group of invited participants from the U.S. will be joined at the workshop by French researchers and engineers representing diverse organizations engaged in seismic research. The workshop will consist of state-of-the-art sessions where surveys will be presented, reports on research activities in the U.S. and France will be made, and discussions on quality guidelines for earthquake engineering will be held. The workshop will provide a basis for both countries to assess their research programs in earthquake engineering and to develop future research plans.